NEESR-SG: Seismic Behavior, Analysis and Design of Complex Wall Systems

SEISMIC BEHAVIOR, ANALYSIS AND DESIGN OF COMPLEX WALL SYSTEMS:
PROJECT SUMMARY
Reinforced concrete structural walls are used commonly as the primary lateral-load resisting system for
new and retrofit construction. However, despite the heavy reliance on wall systems by practicing
engineers, recent efforts to develop performance-based design methods have not yet begun to address
structural walls. Today, engineers have few resources to consult regarding the simulation of wall response
using practical linear and nonlinear numerical models or the prediction of wall damage (e.g., concrete
crack width and concrete spalling) as a function of engineering demands (e.g., inter-story drift).
In part, the inadequacy of available performance-based design tools for walls is a result of limitations in
the available experimental data. Prior to the NEES initiative, experimental facilities were such that only
simplified loading conditions, loading histories, boundary conditions, and geometries could be employed
in the laboratory. Additionally, instrumentation was such that experimental data typically include wall
displacements and end rotations, average strain measurements and a few analog images showing damage
progression. Only a few existing experimental data characterize the response of walls with complex
geometries or subjected to bi-directional load histories. None of these data sets include high-resolution
strain fields for use in validating advanced simulation tools, nor do any of these data sets include highresolution digital images that can be used to quantify damage. No experimental investigations consider
boundary conditions that simulate soil and foundation deformations.

INTELLECTUAL MERIT
The research proposed here will advance the understanding of, and simulation tools for, the seismic
performance of slender walls through experimental and analytical investigations of wall systems with 1)
configurations used in modern design, 2) load distributions that are representative of earthquake loading,
3) and consideration of soil-structure-interaction effects. The advanced experimental capabilities of the
UIUC MUST-SIM NEES facility will permit realistic simulation of these complex conditions.
Instrumentation developed as part of the MUST-SIM facility makes possible high-resolution monitoring
of test specimen displacement fields and such data are necessary to enable the proposed model
development effort. These data will be used to advance the state-of-the-art for simulation of reinforced
concrete structures through the development of fiber-shell elements that can be used to simulate the
inelastic response, including localized damage mechanisms, of three-dimensional walls. Results of the
proposed experimental investigation and parametric studies using the high-resolution numerical models
will be used to advance the state-of-the-practice for design of wall systems including the development of
elastic and simplified inelastic modeling techniques that are appropriate for use with commercial
software. Additionally, experimental and simulation data will be used to develop performance-based
design tools that account for modeling uncertainty and link engineering demand parameters and damage
states.

BROADER IMPACT
The structural engineering profession recognizes that the limitations identified above represent a
significant gap in the development and implementation of performance-based seismic design provisions.
To facilitate the transfer of the research result to practice, an External Advisory Panel has been assembled
for the project that includes prominent structural engineers and members of structural engineering
societies. An interactive website will be developed to disseminate research results to earthquake
engineering professionals, educators and students to allow real-time viewing of experimental tests. In
addition to educating today's engineers, the research team will use the research process and results to
educate future engineers using the tele-observation capabilities at the NEES facility and education
modules in design and analysis classes. The project team will leverage its own diversity and established
programs in the colleges of engineering to reach a diverse student population. In addition to these
activities, the team will work with college of engineering at UW, UICU and MUST-SIM group to reach
K-12 students with activities such as Engineering Open House.